Continuation and Expansion of Collaboration between South African National Research Foundation and the US National Science Foundation

This award will conduct an educational research project in conjunction with some universities and faculty in both the United States and South Africa. The focus of the project will be standards-based education reform. The project will support exchange of faculty and graduate students, as well as some research costs.